TC: Medium: Higher-Level Abstractions for Trustworthy Federated Systems

This project studies higher-level abstractions for constructing distributed
systems that integrate information and computation across administrative and
trust domains. Current practice does not offer general, principled techniques
for implementing these systems securely. To develop these techniques,
fundamental problems of security, consistency, performance, and system
evolution are being explored. Problems studied include automatic, adaptive,
secure partitioning of programs and data across the nodes of a distributed
system; new authorization logics for efficiently managing trust
relationships in a distributed system; new methods for increasing
performance of distributed systems while guaranteeing strong data
consistency; and new ways to securely and consistently evolve the structure
of persistent information.

These topics are being studied in the context of Fabric, a new platform for
secure distributed computation. Fabric is intended to support secure
integration of information systems, a valuable capability for many application
domains, including in medicine, finance, education, government, and the
military. For example, good methods for integrating distributed information
systems would support secure sharing of medical records between institutions.